ITR: Adaptive Fault Recovery for Networked Digital Systems

In this project an integrated fault recovery system is developed that
quickly isolates faults in programmable digital components and
determines new device programming configurations to return them
to full functionality. After detection of a hardware fault in a digital
component such as a digital signal processor or a field-programmable
gate array, an attempt to recover from the fault is made at the local
embedded system affected by the fault. If the local system is unable
to complete the recovery effort, a computational-superior remote system
may be accessed via a local network to aid in the recovery effort.
In either case, the result of the recovery procedure is a new device
configuration (instruction sequence or configuration bitstream). This
configuration allows the affected system to perform the same logical
function as the original configuration while avoiding the detected
functional hardware fault.

The direct result of this work is a set of compilation techniques for
both DSPs and FPGAs that produce instruction and bitstream
configurations that avoid detected hardware faults.
These tools are directly integrated into a networked
environment through the use of TCP/IP transfer mechanisms built into
operating systems frequently used for scientific computing.